Architectures for Application-Specific Concurrent Computers

The present generation of concurrent or parallel computers are intended to be (quasi) general-purpose computers. Achieving this design goal has resulted in a significant architectural tradeoff. The channels are too slow to allow the use of state-of-the-art VLSI processing elements in order to provide a large number of inexpensive communication channels between the processing elements. As a result, these computers have not offered a sufficient advance in performance or cost-effectiveness over conventional supercomputers to inspire widespread interest among scientists and engineers with computation-intensive problems. However, by appropriately restricting the class of target applications, it is possible to design concurrent computers which are at least two orders of magnitude more powerful and cost-effective than those built thus far, justifying the programming effort needed to use a concurrent computer. This research is a study of the relationship between the structure of computation-intensive problems on the one hand and concurrent computer architectures on the other. It includes the development of techniques for characterizing the grain-size dependence of the communication to computation ratio of several computation-intensive problems, and will use the results obtained to design architectures for concurrent computers which are suitable for these problems. The potential discoveries and advances expected from this research are methods for characterizing the dependence on the decomposition grain size of the communication to computation ratio of computationally intensive problems, and the design of architectures for concurrent computers which are suitable for these problems. The emphasis of this research is on the identification of properties of computationally intensive problems which can be exploited in the design of application-specific concurrent computers. The contribution of this work is to develop our understanding of how to characterize these problems so as to be able to design a concurrent computer which will advance the state-of-the-art for cost-to-performance-ratio in supercomputers.